Bridging Arithmatic and Algebra: Exploring How Children Understand Changes on Equal Amounts

PROJECT SUMMARY Bridging Arithmetic to Algebra: Exploring how children understand equal changes to equal amounts When, after years of arithmetic problem solving, students are introduced to algebra, the meaning of equivalence, operations, and equations undergoes a paradigm shift. Instead of one-way transformations to find an answer, mathematical operations are meant to describe logical relations among elements (quantities or variables). Given the gulf between arithmetic and algebra, it is no surprise that students have enmrmous difficulties in algebraic problem solving. Such difficulties seem to justify that instruction on algebra should only start when children are about 12 years old. Only then are they required to leave aside the direct arithmetical path and to focus, instead, on the extraction and representation of relevant mathematical relations. The contrast between children's difficulties with algebra in high school and some successful attempts to teach algebra at earlier grades suggest that it is time to consider deep changes in the elementary mathematics curriculum including the possibility of having children discussing, understanding, and dealing with algebraic concepts and relations much earlier than usual. But such changes demand careful analysis of children's understanding about the logico- mathematical relations implicit in algebraic rules, of their own ways of approaching and representing algebra problems in different contexts, and of the most adequate instructional models for initiating algebra instruction. This project is a preliminary investigation of seven to eleven year-old children's understanding of basic relations involved in dealing with equations in different contexts. A total of 120 upper middle-class 7 to 11 year-old Brazilian children participated in the study. Each child individually participated in two of a total of four tasks, each one containing 16 different items. Each task referred to one of the four following contexts: (a) equivalence between weights on a two-pan balance scale, (b) equivalence between quantities of discrete concrete objects, (c) equivalence between quantities expressed in verbal problems, and (d) equivalence between the two sides of written equations. For each item an equality was established and the child was asked whether or not the equality would remain if similar or dissimilar transformations were to take place on each of the two compared amounts. They were also asked to justifty their answers and to use whatever tools and representations they judged necessary to solve the problems. The analysis of data already collected will provide a starting point for a future analysis of how American children from different backgrounds understand and deal with similar problems. With this study we hope raise new questions and to frame new hypotheses for research concerning the development of algebra activities in the elementary mathematics curriculum. NSF FORM 1358 (1/94)